Upgrading of Physiology Laboratory Through Computer Acquisition

The acquisition of 8 computers and accompanying hardware and software will be used in the physiology laboratory to directly involve students in learning the basic principles of muscle, respiratory and cardiac physiology. Not only would such acquisition be a state of the art approach to the study of physiology, it would also allow for the direct participation of every student in the science laboratory. Students will also gain an appreciation for the use of computers in the collection and analysis of experimental data.